High Temperature Thermochemistry of Intermetallic Compounds

0093736
Kleppa

This research examines alloys of transition metals and lanthanide metals and compounds formed between these metals and the noble metals as well as lower melting metals indium and lead. The research includes gallium alloys and compounds of gallium with the lanthanide metals. The investigation of the noble metal compounds is carried out by direct synthesis calorimetry at 1200 degrees C. The gallium and indium compounds are studied by the same technique at 1100 degrees C and the lead compounds at 900 degrees C.
%%%
The thermodynamic data developed in this program is of value to scientists designing new metal alloys.